High Resolution Estimates on Wind Stress, Heat Fluxes, and Related Quantites Over the Global Oceans

The objective of this project is to use individual ship reports from the COADS Compressed Marine Reports 5 to produce a global, high resolution data base for observational and modeling studies of the atmosphere-ocean system. In addition to basic quantities such as wind, sea surface temperature and humidity, this data set will include estimates of surface wind stress, latent and sensible heat fluxes, and short and long wave radiation fluxes. Particular attention will be paid to correct known biases associated with erroneous Beaufort scale and adjustment of the anemometer height to a standard 10 m reference level. The data sets will be produced in two different resolutions: 1) Global monthly mean summaries with 10 longitude by 10 latitude resolution, anomalies and climatology from 1945 to 1989; and 2) Global weekly mean summaries with 0.50 longitude by 0.50 latitude resolution, climatology form 1965 to 1989. These summaries will then be globally analyzed by essentially the same objective analysis scheme used in Levitus' Climatological Atlas of the World Oceans (1982). Raw monthly/weekly statistics will be made available to those users desiring to perform their own objective analysis. All products will be made widely available to the national and international scientific and operational communities with no restrictions. This project will provide better and more valuable data products for the use of the scientific community for observational studies of atmosphere-ocean system as well as forcing of the oceanic general circulation models, for air-sea interaction studies from interannual to decadal time scales, both in the tropics and/or extratropics and provide a more accurate surface marine climatology than presently exists.